Microscale Thermal Radiation Properties of Metal Films

The objective of the proposed research is twofold: (i) to theoretically understand and predict the radiation properties of thin metallic films from the fundamentals of microscopic electron transport and electromagnetic wave propagation, and (ii) to experimentally evaluate the radiation properties of such films. The theoretical study will evaluate radiation properties by analyzing coupled Boltzmann and Maxwell's equations. The experimental aspects will include fabrication of thin films of different materials and thicknesses by sputter deposition, comprehensive microstructure and surface characterization, and laser reflection and transmission evaluations.